US-Nepal Planning Visit: Investigation of Electronic Structures and Properties of Condensed Matter Systems

0004125
Das

This award supports a planning visit for Tara Prasad Das of the State University of New York at Albany to discuss collaborative research with faculty members of the Physics Department at the Tribhuvan University (TU), Kathmandu. Proposed topics include electronic structures and associated properties of a number of condensed matter, biophysical, atomic and molecular systems. The projects will be mutually beneficial and working collaboratively is expected to enhance the abilities of both groups to carry out investigations more effectively than would have been possible had they worked separately.